Participant Support for Liblice V Conference on Statistical Mechanics of Liquids, Czech Republic, June 7-12, 1998

ABSTRACT CTS-9813499 Keith E. Gubbins/N. C. St. U. Partial support is provided for chemical engineering participants Liblice Conference on the Statistical Mechanics of Liquids, to be held at Zelena Ruda, Czech Republic on June 7-12, 1998. The Czech Academy of Sciences is organizing and hosting the conference, and will cover all local costs within the Czech Republic. Unique features of the conference will include: (a) coverage of the most recent molecular methods and results for complex liquids and interfaces, including ionic and associated liquids, colloids and micellar solutions, self-assembly, aqueous solutions, surfactants and adsorbents, glasses, polymers, phase equilibria, and confined nanofluids, (b) latest developments in advanced molecular simulation techniques, including parallel and distributed systems, (c) coverage of both applied and basic aspects, and (d) an opportunity for U. S. researchers to become familiar with leading research in this area by groups from East and West Europe, Japan and Australia. The invited speakers will include many of the international experts from these counties. Previous conferences were held in 1983, 1986, 1990 and 1994. ***